A Mentoring Network for Increasing Technology-based Mathematical Instruction

Over a 28-month period 9 Chicago metropolitan area high school mathematics teachers at three "hub" high schools and Elmhurst college faculty will assist 60 faculty and their administrators in nine participating high schools in the application of technology to the mathematics classroom through the use of an ongoing mentor program. Each of pair of mentor teachers will work with faculty at three participant schools for a two-year period. The focus of the project is on trying technology and technological skills to the NCTM Standards, local textbooks, national curriculum projects, and specific district curricula. The program involves: 1) spring and summer workshops for mentor teachers and participant faculty; 2) continuing in- service and on-site visitations by the mentor teachers; 3) adaptation of new classroom materials and exploration and development of teaching strategies that take into account local faculty expertise, hardware/software, course offerings, current texts, and curriculum emphasis; and 4) the establishment of a resource center/library of technology-oriented teaching materials at Elmhurst College for the hub, participant, and other area schools' faculty.